Real-Time Intelligent Control for an Automated Taxi

This award is for a postdoctoral associate in Experimental Science. The associate, Gary Ogasawara, will be working on decision-theoretic agents working in real time environments.